Thermal Modeling and Experimental Testing of Droplet Interface Heat Transfer for Microcasting Spray Shape Deposition Processes

ABSTRACT CTS-9630801 Amon This work is a fundamental investigation of heat transfer and flow phenomena in microcasting. The spreading and solidification of molten metal droplets impinging on a surface will be modeled numerically and tested experimentally. Remelting of the solid substrate by the impacting droplet, modeling of dissimilar materials with potential simultaneous melting fronts, and modeling the continuous droplet/substrate system conjugately will be addressed. Spectral element direct numerical simulations of the governing thermo-fluid equations will be verified by experiments. Applications of this technology include manufacturing of multi-layer materials, artifacts with controlled microstructures, and artifacts with embedded electronic components.